RIA: Synthesis and Planning for the Grasps of Planar and Solid Objects

This research project addresses the problem of grasp planning and object manipulation. An innovative technique for effectively calculating the finger forces to be applied to the grasped object is developed. The CAD model of a dexterous robotic hand, task specification, and a contact model (e.g., soft finger contact with friction), are used to yield a stable grasp suitable for the task. If the desired grasp cannot be achieved in the initial phase, for example due to presence of nearby obstacles, the system autonomously plans and executes dexterous manipulation actions to gain the desired grasp. The results of this research will solve the inherently complex grasp problem in a computational efficient and physically meaningful manner.*** //